Molecular Genetics of Extracellular Polysaccharide Synthesis in Erwinia Stewartii

Erwinia stewartii causes both a leaf blight and vascular wilt of field and sweet corn. The long term goal of our research is to understand how E. stewartii damages plants. The primary mechanism of pathogenicity of this bacterium is production of extracellular polysaccharide (EPS) that occludes the xylem vessels and causes the plant to wilt. When the bacterium grows in the intercellular spaces of young leaves, it produces a symptom called "watersoaking" (Wts) that is due to the loss of cell membrane semipermeability and the resulting accumulation of fluids in the tissue. The cause of Wts is not known but recent genetic evidence from our lab suggests that a polysaccharide may be involved. We have discovered a large region of the E. stewartii chromosome that is involved in synthesis of EPS (cpsA-D) and have also identified a positive regulatory gene, rcsA, that is required for expression of the cps locus. Mutations in cpsC-D and rcsA both result in loss of Wts ability. Since polysaccharide synthesis and overall pathogenicity in E. stewartii appear to be coordinately regulated by rcsA, we are proposing to study the regulation of EPS synthesis and the organization of cps genes in this bacterium as a model of pathogenicity gene expression. Specific objectives are: l) Use cps::lac gene fusions to determine external signals such as nutrition and temperature that affect regulation of EPS synthesis. 2) Characterize genes that regulate transcription of cps operons. 3) Compare the nucleotide sequence of rcsA genes from E. stewartii and E. coli. 4) Determine if EPS synthesis is regulated by lon proteolysis of the RcsA protein. 5) Continue genetic analysis of the cps gene cluster.